Enhanced Instrumental Analysis Instruction Using GC/MS/COMP

Gas Chromatography-Mass Spectrometry (GC-MS) interfaced with a modern computer (COMP) gives the chemist a powerful tool for analyzing mixtures of compounds and monitoring reactions as they progress. The use of GC-MS-COMP in the undergraduate laboratory gives students experience with current instrumental methods for molecular analysis, introduces students to the fundamentals of information theory, and demonstrates by experiment the role of computers in instrumental control, data acquisition, and data manipulation. This ILI award from the Chemistry Shared Instrumentation Program will help the Department of Chemistry at Southern Illinois University at Carbondale to acquire a GC-MS-COMP system that will be used to enhance undergraduate laboratory instruction.